Optical Aerosol Properties Over the Asian Pacific Ocean

This project involves the measurement of aerosol optical properties in east Asian outflow. The measurements will be made during the spring of 2001 aboard the NOAA R/V Ron Brown. Aerosol light scattering properties will be obtained with controlled relative humidity nephelometry. These measurements will describe the ambient aerosol light scattering coefficients and their dependence on wavelength of visible light, direction of light scattered (total and back), and upper particle under increasing and decreasing controlled relative humidity conditions. These measurements will be used in conjunction with other shipboard aerosol measurements to relate aerosol scattering to chemical composition, refractive index, and dry particle size distributions.